Perspectives and Opportunities in Bioengineering. Conferenceto be held October 16-18, 1992 in Salt Lake City, Utah

This grant is for partial support of a conference on "Perspectives and Opportunities in Bioengineering" which is the theme of the 1992 Fall Meeting of the Biomedical Engineering Society. Six major symposia will address topics related to the theme of the meeting. The symposia are: 1) Cardiovascular Bioengineering; 2) Micro and Nano Bioengineering; 3) Bioengineering in Society; 4) Cell and Tissue Bioengineering; 5) Bioengineering in Outer Space; and 6) Clinical Bioengineering. This grant will support speakers whose topics will be on either emerging areas of Bioengineering or on areas that could benefit from additional research in the Bioengineering field.